U.S.-Argentina Collaborative Workshop in Nuclear Physics and Its Applications

0527110
Djalali

This U.S.-Argentina award will support Dr. Chaden Djalai of the University of South Caroline and Dr. Philip L. Cole, Idaho State University to organize a workshop with Dr. Andres Kreiner of Comision Nacional de Energia Atomica, Buenos Aires, Argentina on nuclear physics and its applications. This small workshop will take place within the larger VI Latin American Symposium on Nuclear Physics and Applications (VI LASNP) to be held in October of 2005 in Iguazu, Argentina. The workshop will focus on various topics such as nuclear matter at high densities, nuclear astrophysics, neutrino physics, exotic nuclei, as well as photo- and electron-nuclear physics with the attendant applications to nuclear physics. A key objective of this activity is to engage graduate students and postdocs in an exchange of ideas and networking in preparation for careers in nuclear physics.